NSF Young Investigator

ECS9358309 Zhu The Principal Investigators research focuses on the magnetic aspects of future ultra-high capacity magnetic data storage systems. Combining supercomputer aided micromagnetic simulation studies with experimental fabrication techniques, they are developing magnetic thin film media with advanced microstructures which are capable of storing data at densities of two order of magnitude higher than that in current high-end hard disk drives. The P.I.s have developed a technique which uses a magnetic force microscope as a micromagnetometer with superior magnetic sensitivity to directly measure magnetic switching properties of a single nano-scale magnetic particle for the first time in this field. They are using this new technique to study ultra-fine magnetic particles for developing the medium in future Tera-Byte magnetic data cartridge. ***